Research Initiation: Cooperating Transactions: An Approach to Resilient Collaborating Computations

User interaction with computers has long been on an individual basis with little or no help to support cooperative work. Applications such as office information systems, design endeavors in CAD/CAM and VLSI, programming in-the-large, and decision support systems require users to collaborate. Currently, there is no framework to specify correctness of concurrent actions in a cooperative environment and to design protocols for cooperating transactions. The goal of this research is to use semantic information to develop a framework for controlled sharing of information, i.e., transaction-oriented cooperation. A preliminary version of a framework for transaction-oriented cooperation has been developed. In this project, this framework is extended to include different types of transactions and to handle failures of individual transactions in a cooperative environment. In addition, the aim is to build a prototype application that uses an object-oriented database to validate the framework and demonstrate its practicality. Results of this work, are expected to provide an effective approach to developing distributed applications that require cooperation.